Collaborative Research: ITR: Fundamental Performance Trade-offs for Ad Hoc Networks

Abstract:

Various types of ad hoc wireless networks have been the subject of
much recent interest. For our purposes, these networks can be
characterized as a set of nodes that
communicate with each other over wireless channels using little or no
fixed
infrastructure. In such a network, to reach its
destination, a message may need to be forwarded over several
intermediate links. Examples of this type network include mobile
ad hoc networks (MANET's), sensor
networks, and various hybrid ad hoc/cellular architectures. Such
networks
have the advantages of being rapidly deployable and requiring little or
no
fixed infrastructure. However, efficiently utilizing this type of
network is
a challenging task due, in part, to the interference between nodes, the
time-varying nature of the communication channels, the energy
limitations of untethered nodes, and the
lack of centralized control via, for example, base stations.

This project is part of ongoing research with the goal of
furthering understanding of basic performance trade-offs for ad
hoc networks. This work takes a cross layer view and
considers both physical layer limitations as well as higher layer
performance metrics such as packet throughput. Techniques from
queueing theory, optimization, and information theory will be
utilized in this work. In contrast with our previous work on problems of this type in
single-hop wireless settings, or, that is, models more appropriate
for cases such as cellular networks, where all communication is to
or from a single point, in this project, we are focusing on multi-hop
ad hoc networks, with multiple transmitters and multiple
receivers. In this environment, several new issues complicate the
analysis. These include the routing and forwarding of traffic
within the network and the scheduling of transmission and
reception by each node. Specific problems that are being addressed
include
characterizing network stability and identifying adaptive resource
allocation policies which maximize packet throughput.